Nitrogen and Carbon Dynamics of Groundwater at the Coastal Margin

ABSTRACT

This work will test the hypothesis that the coastal margin contains transition zones enriched in labile organic carbon and that these zones can markedly affect groundwater nitrogen dynamics in coastal aquifers. The study would focus on three coastal settings in the salt ponds of Rhode Island to examine how temporal and spatial processes affect nitrogen and carbon cycling, groundwater nitrogen removal rates and N20 efflux at the coastal margin. The studies would be done in-situ with minimum disturbance to soil structure. The work will endeavor to increase our understanding of the structure and function of the coastal margin and provide information on groundwater nutrient dynamics essential to water quality management in the coastal zone.

This proposal was submitted in response to the Environmental Geochemistry and Biogeochemistry solicitation NSF 99-9, and is being funded by the Division of Ocean Science, Earth Sciences, and Chemistry.